PYI: Theory and implementation of database systems.

The long-term goal of this project is to increase the performance and functionality of database systems, with a special emphasis on parallel database systems. Three specific topics currently being addressed are clustering/declustering of data on secondary storage, probabilistic methods in query cost estimation and query evaluation, and transparent checkpointing techniques in parallel persistent programming environments. The research consists of theoretical studies to gain an understanding of the key problems involved, followed by analytic studies to compare and contrast alternative solutions to these key problems, followed by prototype implementations of the most promising solutions.